NSF Young Investigator

This is an NYI award for FY 92. This five year research program focuses on the micromechanical material behavior of shape-memory single crystals and on developing an understanding of the role of microstructure in the overall behavior of shape-memory single crystals. A primary goal is to build an improved version of a moire microscope that will allow for the measurement of the surface deformation field near a crack tip during loading. Experimental data arising from the application of this device will be used to formulate models for predicting crack growth in, and subsequent failure of, this potentially important class of materials.